Identification and Molecular Analysis of EGF/Notch-Repeat Proteins involved in Development

This is a Research Planning Grant to enable Dr. Johansen to initiate independent studies aimed toward elucidating the mechanism of determination of correct cell fate choice and subsequent cellular differentiation during development in Drosophila. It is anticipated that this award will help Dr. Johansen obtain the preliminary results necessary to launch an independent research career.